Continued Support of the U.S. STEP (Solar Terrestrial Energy Program) Coordination Office

This proposal will support the continuation of the U.S. STEP (Solar Terrestrial Energy Program) Coordination Office, established in December 1990. STEP assists the U.S. science community in components in spacecraft, ground-based, rocket, balloon and theory and simulation programs capable of studying the complete set of coupling mechanisms responsible for the transfer of matter and energy from the surface of the Sun to the surface of the Earth. The continuation of this coordination office at the University of Colorado will interact with domestic science programs for the purpose of: (1) collecting and disseminating STEP-related information and data, (2) coordinating joint campaigns for data acquisition and analysis which meet the national and international science objectives of STEP, and (3) organizing professional society meetings and special sessions.